Computer Science, Engineering, and Mathematics Scholarships

This project, based on a previous successful CSEMS project, is recruiting low-income students interested in pursuing an educational career in Computer Science, Engineering or Mathematics from the Miami-Dade High Schools, Florida Community Colleges, and also from students applying for admissions to the University. Recruiting and screening processes and criteria have been established to identify the candidates in terms of need, well roundedness, and scholarship.

Broader Impact
FIU is an HSI (Hispanic Serving Institution), and Hispanics are underrepresented in the CSEM areas. The project is actively seeking Hispanic students among the eligible low-income qualifying students without discriminating against other minority or non-minority students. The goal for the freshman students is to graduate them with a Bachelors degree in the 4 years the program lasts and for the junior students is for them to finish first their Bachelors degree during the first 2 years of the program and then possibly get a Masters degree in one of the 3 targeted areas (Computer Science (CS), Mathematics (MATH) or Engineering (ENG)) during the following 2 years.

Intellectual Merit
A counseling, guidance, and mentorship program is in place to provide students with adequate support mechanisms to assist the students in achieving the goals. A research experience and internship program is available to all the participating students. Faculty from each of the participating disciplines serve as advisors and mentors to the CSEMS scholars, meeting with them regularly to provide advice on academic, career, support services, and learning enhancement opportunities, as well as personal support and encouragement.